Travel to Florence Italy

This is a travel support for a minority doctoral student to present his paper "On the Fundamental Frequency of Symmetric Rectangular Laminated Plates: A New Closed-Form Approximate Solution", at the Florence Modal Analysis Conference, in September, 1991.